Expert Systems for Database Query Optimization

A database query embedded in a program is optimized when the program is compiled. An embedded database query is executed repeatedly with different variable instantiations, i.e. different constants in the query predicate. In order to optimize an embedded query, the query optimizer must make assumptions about the values of the program variables that appear as constants in the query and about the data stored in the database, and the optimality of the resulting query evaluation plan depends on the validity of these assumptions. This proposal aims at developing criteria when reoptimization is required, how these criteria can be implemented efficiently, and how reoptimization can be avoided. by using a new technique called dynamic query evaluation plans. The query optimizer will determine which cases are worth distinguishing, prepare more than one query evaluation plan using a multi-goal search strategy, and prepare a decision tree for the run-time system. The new query optimization technology promises advantages for both conventional and advanced data models.